Foundation of the Geometric Function Theory in R^n: The Governing differential Forms, Variational Integrals and Nonlinear Elasticity

Abstract :

ANALYTICAL FOUNDATIONS OF THE GEOMETRIC FUNCTION THEORY;
VARIATIONAL INTEGRALS AND NONLINEAR ELASTICITY

Tadeusz Iwaniec

One of the major recent advances in the higher dimensional geometric
function theory is based on finding new differential equations analogous
to the Cauchy-Riemann system in the complex plane. Hodge theory of
differential forms has come to play a central role in this rather modern
approach. The Jacobian determinants and the wedge products of the exact
differential forms are subjected to a great deal of investigation, as they
provide the means of achieving continuity, compactness, or normal family
type results. It is important to realize that the higher integrability
properties of the Jacobians can only be observed for mapping in the
Orlicz-Sobolev classes. More recent developments have emphasized the
connection between quasiconformal mappings and the theory of nonlinear
elasticity already formulated by S.S. Antman and J. Ball in 1976-77. This
connection is an important aspect of the proposal. And that is why we
depart from the usual quasiconformal theory quite far towards mappings
(deformations of elastic bodies) with unbounded distortion. However, some
control, such as BMO-bounds, of the distortion tensor will be necessary to
achieve concreate results. The governing equations for mappings of finite
distortion are non-linear first order systems of PDEs. There are also
related second order systems which arrise naturally as the Euler- Lagrange
equations of the associated variational integrals (stored energy of the
deformation). An analogy between the analytic aspects of the holomorphic
functions and mappings of finite distortion is particularly pronounced in
even dimensions. A fruitful idea when studying these mappings is to view
them as conformal with respect to certain measurable metric or conformal
structures. Many of these notions extend to Riemannian manifolds, and
accordingly, while we do not develop this aspect in full all the machinery
we set up is ready and willing for these generalizations.
The reader interested in developments along these lines and a
comprehensive account of the geometric function theory is warmly referred
to the forthcoming monograph of G. Martin and PI.